Enabling K-12 Education in the Pacific Northwest through Internetworking

"Enabling K-12 Education in the Pacific Northwest through Internetworking" is a project to develop and implement a two-year pilot program to provide teachers, students, librarians, and administrators with access to Internet resources through dedicated network connections to a total of six school districts and primary and secondary schools, with supplemental dial-up access to approximately one-hundred additional educators in the Pacific Northwest. Network activities will focus on the following: . development of curriculum and instruction cooperation among schools to create a network communications infrastructure for future use collaboration on technical education and training necessary for effective utilization of the network